Computerized Laboratories in an Undergraduate Psychology Department

The psychology department to upgrading equipment in existing laboratories in learning and perception, in a cognition course, and further promoting and broadening the opportunities for independent student research. The laboratories and research activities supported by this proposal are intended to illustrate the principles and concepts of psychology through first hand exposure, to familiarize students with the scientific methodology and instrumentation in these areas, and ultimately to develop the skills necessary for independent investigation. Six microcomputers, six printers, and two interfacing devices are being requested. Two computers, printers, and the interfaces will be used to support laboratories in learning and three computers and printers will be used in cognition and sensation/perception courses. The sixth computer and printer will be devoted to data analysis and preparation and report writing by students enrolled in the above courses and those carrying out a senior thesis.